The Geometry and Topology of the Jones Polynomial

In 1985 Jones assigned to a knot a polynomial with integer coefficients,
and in 1989 Witten came up with a path-integral interpretation of this
polynomial. Upon taking parallels, one can consider a sequence of
polynomials. The volume conjecture relates an asymptotic behavior of this
sequence (evaluated at complex roots of unity) with the Riemannian (mostly
hyperbolic) geometry of the knot complement. The PIs propose to study this
and related conjectures that relate quantum topology and geometrization.

A knot in 3-space is a flexible rope that is allowed to deform without
crossing itself. The width and length of the rope are irrevelant, and its
beginning and end coincide. For example, a rubber band is an example of a
knot. In the middle of 19th century, Kelvin postulated that chemical
elements (such as gold, aluminum) are made out of knots; thus different
knot types explain the variation of observed chemical elements. More than
a century later, string-theory offers a similar view of the world, where
elementary particles are vibrating in the fabric of cosmos, along knotted
circles. Whether string-theory explains the world is a key question.
Meanwhile, it is known that string-theory has deeply influenced
mathematics.